Development of Interactive Video-Disk Lab Instruction in Physical Anthropology

An interactive video-disc laboratory in physical anthropology is established. The project includes an evaluation of interactive video- disc authorizing systems. A Physical Anthropology Video-Disc is being developed. It includes sections on: human skeletal anatomy; identification, analysis and interpretation of human skeletal remains; and human paleontology. The video-disc is used for instruction in both lower and upper physical anthropology courses. The educational effectiveness of this method of instruction is being evaluated. Results of the evaluation will be published and copies of the physical anthropology video-disc will be distributed at cost. The institution is matching the NSF grant with an equal amount of funds.